Autoxidation of S(IV) and N(III) in Frozen Solution-- Possible New Role for Glaciated Clouds in Aerosol Formation

9409776 Betterton Dilute aqueous solutions of sulfite and nitrite can be rapidly oxidized in high yields to sulfate and nitrate, respectively, simply by freezing the sample. Since the yields and rates of oxidation induced by freezing are high compared to their oxidation pathways in hydrometeors, and since many clouds become glaciated at some point during their life cycles, a study of the "freezing effect" could lead to the discovery of significant new pathways for aerosol formation and acid precipitation. For example, it could provide a new feedback mechanism between the release of cloud condensation nuclei (CCN) by evaporating clouds and the processing of precursors by existing glaciated clouds; it could provide a further link between cloud formation and the global concentration of aerosol particles (thereby affecting the global radiation budget); and it could affect cloud droplet size distributions and therefore cloud albedos and the radiation budget. The "freezing effect" could also play an important role in the formation of acid precipitation since precursors of both sulfuric and nitric acids can be oxidized during freezing. Also of concern is the possible influence this effect could have on the integrity of cloud- and rain-water samples preserved by freezing. This research will examine the hypothesis that the "freezing effect" is in fact a concentration effect that occurs when reactants are concentrated into liquid micro-pockets as the solution freezes. The resulting high concentrations of reactant and dissolved oxygen could then lead to rapid auto-oxidation. This study will focus on a series of laboratory experiments designed to test the hypothesis and to improve our understanding of the "freezing effect". The stoichiometry and kinetics of the auto-oxidation of S(IV) and N(III) upon rapid freezing will be studied by means of ion chromatography and capillary electrophoresis.